A Markov-Chain Model for Intergranular Stress Corrosion Cracking

Olson 9704471 The proposed research develops a new model of intergranular stress corrosion cracking of metals, based on measurable features of the polycrystalline microstructure. In the model, the crack is viewed as proceeding through a network of grain boundaries, causing failure when the crack percolates through the material. The first phase of this project will be to compare various models for interface energy. This analysis will largely be a statistical analysis of data obtained from cracked samples, followed by a comparison and modification of the existing interfacial energy models. Next, the model will be used to compare the resistance to cracking of various microstructures. The microstructures to be tested will include random textures, textures simulated through numerical models of annealing, and textures from actual materials measured by Brent Adams' experimental group at Carnegie Mellon University. The results for textures from simulated processing models will predict the net effect of material processing on material performance. The lifetime of many engineering materials (for example, metals and metal alloys) is seriously limited by their susceptibility to the phenomenon called stress corrosion cracking. This type of failure occurs when the material is subject to a combination of tensile stress and a corrosive element, leading to a crack which propagates through the material and causes it to break. The main objective of the proposed research is to develop and analyze a new model of intergranular stress corrosion cracking. This model is used to predict the growth of cracks in metals and metal alloys, and it is unique in that it incorporates measurable microstructural information from the material. Because stress corrosion cracking is a common and catastrophic phenomenon in certain materials, it would be invaluable for engineers to be able to estimate a material's susceptibility to cracking by measuring microstructure and u sing the model. In addition, if one can correlate given processing techniques with the resulting microstructures, one could then use this model to prescribe processes which would enhance resistance to stress corrosion cracking.